Purchase of a Nuclear Magnetic Resonance Spectrometer

Nuclear Magnetic Resonance (NMR) spectroscopy is the most important tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to modern NMR spectroscopy is essential to chemists who are carrying out frontier research. The Department of Chemistry at the University of Southern California will use this award from the Chemical Instrumentation Program to help acquire a high-field NMR spectrometer. Included among the areas of chemical research that will be enhanced by the acquisition are the following: 1) Synthetic coordination chemistry 2) Deuterium isotope effects on carbon-13 chemical shifts 3) Structural and spectroscopic studies on intramolecular donor-acceptor system 4) Proton and carbon-13 NMR of unsaturated silyl substituted polymers 5) Reactions of organometallic complexes.